Engineering Faculty Internship: Towards Automation of Design and Manufacture of Dies

The general focus of this internship project is to carry out research directed at automating the design and manufacture of dies. In particular, a parametric design and manufacturing system will be developed that takes as an input the CAD model of a stamped part (e.g., and automobile outer panel) and produces the design of die components required for its manufacture. The design and manufacture of dies is a problem central to reducing the concept to customer time for a variety of industrial products. The results of this research are expected to directly impact the competitiveness of United States manufacturing industries.